Large Deviations and Exact Asymptotics: A Constructive Theory

PI: PI NAME Foley, Robert

INSTITUTION: GA Tech Res Corp - GIT

TITLE: Large Deviations and Exact Asymptotics: A Constructive Theory

Proposal Number: 0856489

"Large Deviations and Exact Asymptotics: A Constructive Theory"

The research objective of this project is to develop analytical methods for
computing exact asymptotic expressions for the probability of rare events and
for determining how these rare events develop. The probability distribution of
interest is implicitly defined as the stationary distribution of a Markov process.

Markov processes are frequently used to model complex systems in a wide variety
of areas including reliability and telecommunications. The rare event of
interest might correspond to states in which a highly reliable system has failed or when a buffer in a telecommunications network is full so that arriving packets would be lost. In well-designed systems, such events should be rare, but it can be critical to know how rare. Exact asymptotic expressions accurately approximate the probability of these rare events. In addition to knowing their probability, it can be beneficial to know how these rare events develop. Typically, they are preceded by the same type of behavior. For example, packets overflowing a particular buffer in a communications network may almost always be preceded first by a large increase in the number of packets at another node.

If successful, the results of this research will lead to a deeper understanding
of rare events, to exact asymptotic expressions for their probabilities, and to
results describing the system evolution prior to their occurrence. The analytical expressions will allow accurate assessment of the probability of rare events in complicated systems. Designers of complex systems will be able to use these results to determine whether a particular design meets performance specifications.

In addition, by knowing how the process evolves prior to the occurrence of the
rare event, designers would have a better understanding of where to modify the
system to improve performance.